1994 Gordon Research Conference on Catalysis

9322388 McVicker Partial support is provided to the 1994 Gordon Research Conference on Catalysis to be held June 26 to July 1 in New London NH. Funds will be used to subsidize invited speakers and young investigators, including graduate students and postdoctoral associates, to attend the conference. ***